A Tracer Release Experiment in the Brazil Basin

Ledwell OCE-9906685
The tracer patch that was purposefully released in 1996 in the Brazil basin on a
density surface about 1000 meters above one of the valleys, and 500 meters
over the tops of the surrounding abyssal hills will be resampled In the year
2000nto significantly extend the direct measurements of diapycnal diffusivities
and horizontal dispersion. In addition, several shearmeter floats will be deployed
to spatially extend the observations of the internal wave shear field gathered with
a single current meter mooring deployed in 1998 above the valley were the tracer
was released.